Efficient Fair Queuing and Load Balancing

Internet traffic is growing rapidly due to the immense popularity of the World Wide Web and new multimedia services such as video-conferencing. The increased traffic volume requires higher speed (Gigabit/sec or higher) links, while some of the new traffic varieties (such as audio and video) also demand quality-of-service guarantees. This proposal addresses the problem of providing high speed links by combining multiple low speed links and performing load balancing. It also address the problem of providing quality of service guarantees for high speed links through the design of efficient fair queuing algorithms. The proposal is concerned with the design, evaluation, and implementation of new and efficient fair queuing and load balancing algorithms. Although these two problems may look quite different at a first glance, the Pis show that fair queuing algorithms can be converted into load balancing algorithms using a time-reversal argument. Existing mechanisms for fair queuing either are computationally expensive, or they fail to provide the necessary service guarantees (e.g., good bounds on latency and throughput) required by many applications. The PIs develop a new fair queuing scheme called Tandem Clock Fair Queuing, which offers quality-of-service guarantees comparable to those of the best previous schemes (such as Weighted Fair Queuing), and yet appears to admit efficient implementations. Existing methods for load balancing provide inadequate load sharing in the presence of variable length packets, and may result in non-FIFO delivery of data if packet headers are not allowed to be modified. The PIs describe new load balancing schemes that solve these two problems by transforming fair queuing schemes into load balancing schemes, and by using the twin mechanisms of logical reception and sender simulation. The investigators propose to refine and extend these new directions in fair queuing and load balancing algorithms into complete and workable schem es that can be deployed in the Internet and other real networks. They plan to evaluate and refine our schemes using a combination of mathematical analysis, simulations, and actual implementation using a testbed.